Mechanisms of Protein Import into Chloroplasts

9404611 Schnell The cells of higher plants contain a unique organelle, the chloroplast, which offers an excellent model system to study the problem of the mechanism by which cytosolically synthesized proteins are targeted and assembled in their proper subcellular compartments. The majority of the protein components of the chloroplast are encoded in the nucleus, synthesized as precursors on cytoplasmic ribosomes, and are post translationally imported into the organelle across the double membrane of the chloroplast envelope. The long term goal of this research is to understand the mechanism of protein import into chloroplasts. This proposal concentrates on the identification and characterization of chloroplast components involved in protein translocation across the chloroplast envelope. The first phase of the proposal is concerned about translocation intermediates representing polypeptides that are blocked at various stages of translocation as tags to identify envelope polypeptides that mediate envelope translocation. The second phase of the proposal concerns the involvement of putative components in membrane translocation and to determine the specific roles of each protein in the import process. These studies will provide information of how the outer and inner membranes cooperate to facilitate simultaneous transport of proteins across the chloroplast envelope. The studies are significant for several reasons. First, the protein translocation plays a central role in chloroplast biogenesis. Therefore, the definition of this process is essential in obtaining an understanding of the mechanism by which the photosynthetic and metabolic machinery of the organelle are targeted and assembled. Second, understanding of the import process is important for applications directed at optimizing the metabolic and photosynthetic capabilities of genetically engineered plants by directing foreign or altered proteins to chloroplasts. Finally, the parameters governing the chloroplast protein import undoubtedly will contribute to the formulation of broadest principles concerning the mechanism of protein targeting and membrane translocation in all cells. %%% The green tissues of higher plants are organized to carry out the process of photosynthesis in which light is converted into chemical energy. The cells of these tissues contain a specialized compartment or organelle, the chloroplast, that serves as the site of the photosynthetic reactions and many of the essential metabolic processes of the plant. The long term goal of this research is to understand the mechanism by which resident proteins are recognized and transported in this organelle. An understanding of this process is a necessary requirement for future genetic attempts to improve the green plants photosynthetic efficiency, that controls such important agricultural features as crop yield, improved nutritional value, etc. ***